Laminations: geometry, harmonic analysis and ergodic theory

Proposal: DMS-9973086

PI: Alberto Candel

Abstract: This project proposes to study several problems in the area of
laminations/foliations. One of these problems is concerned with the
geometric structure of the leaves of a lamination. Some natural
questions that the proposer intends to study are: what do the leaves
of a lamination look like? how many different leaves
(e.g. quasi-isometry classes) are there? what geometric invariants can
be (and cannot be) used to distinguish them? Still concerned with the
geometry of the leaves, there are questions about two dimensional
laminations and metric uniformization of their leaves. Especially
interesting are those which have a Euclidean conformal structure,
which are often encountered in problems of low dimensional topology
and geometric group theory. Other part of this project falls in the
area of rigidity of virtual subgroups of semisimple groups and
harmonic analysis on them. Research in this area has been concerned
with virtual subgroups which have an invariant measure. The proposer
seeks to develop the study of harmonic measures, which are non
invariant in a reasonable way, and how they fit in the existing body
of work on rigidity. Other part of the project concerns the study that
certain geometric properties of the leaves of a foliation have on its
transverse or dynamical structure and on the topological structure of
the ambient manifold.

The research of the proposer is in the general area of qualitative
structure and behavior of dynamical systems. Dynamical systems are
used to model processes in many areas, for example the evolution of
living organisms and their morphology, the weather or other physical
or chemical processes. Other systems of interest come from processes
which evolve from a finite amount of data according to some set of
rules, either specified before hand or of a random nature. This could
be neural networks in the brain, systems of digital processors in a
computer, branching processes (as in nuclear fission, evolution and
growth of cells, etcetera). Even when appearing under different
circumstances, their dynamic behavior and structure follows similar
laws dictated by the individual elements and the nature of their
interaction. The purpose of the researcher is to study and classify,
from a geometric/qualitative viewpoint, invariants of these systems
relating to their long time asymptotic behavior, their dependence on
the initial data, the generic properties of the possible states, and
their global structure, all which can be used to understand the
mechanisms underlying such processes.